Undergraduate Geologic Research in Pennsylvania: A Consortial REU Site Proposal

The Geology Departments of Bryn Mawr College, Bucknell University, Lafayette College, and Lehigh University propose to form a consortium that fosters undergraduate geologic research in Pennsylvania. Important research opportunities in subjects as diverse as tectonics and hydrogeology are available in Pennsylvania for students from these and other high-quality institutions. The program will foster cross-institutional and cross-disciplinary studies as students work closely with one or more faculty mentors. Not only will the program provide research experience and career guidance to undergraduate geology majors, but we also expect that significant advances in our understanding of Pennsylvania geology will result from the coordinated undergraduate research activities.